Conference: Foundations of Computational Mathematics 2026

The Foundations of Computational Mathematics Conferences aim to be a main vehicle in the exploration of the broad interface between mathematics and contemporary computation, a subject area of importance both intellectually and for practical applications. Strategic areas such as artificial intelligence and quantum science are featured among the conference topics. The 10th iteration of the international conference in the series Foundations of Computational Mathematics will be hosted in Vienna, Austria. About 700 researchers are expected to attend the conference from around the world, with about a third of them from the US. The allocated funds will partially cover travel and lodging costs for young researchers from US institutions attending the conference. The funds will be distributed on a competitive basis.

The conference is divided into three periods running from July 8 to July 18, 2026. It is organized by the Society for the Foundations of Computational Mathematics in partnership with the local organizing committee from the Faculty of Mathematics at the University of Vienna. Foundations of Computational Mathematics conferences uniquely integrate interconnected disciplines in computational mathematics, encouraging multidisciplinary collaboration. The conference program will include 21 workshops in a variety of fields and 17 plenary speakers. The plenary addresses are designed for non-specialists, enabling participation from a wide range of interests.